Energetic Particles at the Termination of the Solar Wind via Energetic Neutral Atoms

This project completes an alternative route to information on the distribution of interstellar cosmic rays, complementing efforts of the only existing approach. The existing method involves solar modulation and shock acceleration of energetic charged particles at/interior to the solar wind termination shock, while the new approach utilizes the energetic neutral atoms (ENAs) produced from interacting charged particles and local interstellar medium exterior to the termination shock. The investigators are: (1) compiling relevant cross sections for ENA production and extinction, and all characterizing parameters of the solar wind and interstellar gas; (2) coding a three-dimensional computer program simulating ENA flux at any vantage point, and under any heliospheric and interstellar conditions, and (3) developing an iterative process for optimizing the parameters characterizing the spatial and energy distribution of cosmic rays at the termination shock. The research takes a huge step forward in searching for the origins of cosmic rays, as well as propagation of charged particles in and out of the solar wind influence.